Computer Vision Techniques for Annotating Video

This award is for postdoctoral associate in Experimental Science. The associate, Ramin Zabih, will be working on video annotations for context based indexing.